Presidential Young Investigator Award

This Presidential Young Investigator Award is aimed at the synthesis and characterization of new solid state materials which will include reduced ternary oxides early transition metals that include titanium, niobium, and tantalum, and condensed cluster networks derived from intermetallic compounds.